Conference: Workshop on Automorphic Forms and Related Topics

This award will fund travel and lodging for junior participants and others without access to sufficient funds to attend the 37th annual Workshop on Automorphic Forms and Related Topics (AFW). The AFW is an internationally recognized, well-respected conference on automorphic forms, which play a key role in many recent breakthroughs and constitute a major area of study in number theory and related fields. The workshop will meet at the University of North Texas in Denton, Texas, April 30 -- May 4, 2025, this will mark the return of the Automorphic forms workshop to Denton after exactly 20 years. The conference will provide a supportive setting for researchers to disseminate new results, learn from other researchers, and begin new collaborations.

Automorphic forms have played a key role in many breakthroughs in mathematics, including the proofs of Fermat’s Last Theorem (by Wiles and Taylor--Wiles, employing work of Frey and Ribet), Serre’s Conjecture (by Khare, Kisin, and Wintenberger), the Sato-Tate Conjecture (by Barnet-Lamb, Geraghty, Harris, and Taylor), the Monstrous Moonshine Conjecture (for which Borcherds was awarded the Fields Medal), and the Fundamental Lemma (for which Châu was awarded the Fields Medal). Additional information can be found on the conference website: http://automorphicformsworkshop.org/